MRI: Acquisition of an LC/MS system for Middlebury College

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry and Biochemistry at Middlebury College will acquire a liquid chromatograph ion trap tandem mass spectrometer (LC/MS). This equipment will enhance research in a number of areas including a) studies on radical reactions of transition metal-polyene complexes; b) methods for carrying out allylation reactions with allyl palladium complexes with high enantioselectivity; c) studying the mechanism of action of anti-cancer compounds closely related to the commonly prescribed drug, cisplatin; and d) studies of the Maillard reaction.

Liquid chromatography with mass spectrometric detection (LC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at Middlebury College, a primarily undergraduate institution. These studies will have a solid impact in the area of synthetic organic chemistry and medicinal chemistry.